Planning Grant for a Metropolitan Baltimore Center for Manufacturing Education

To address the shortage of well-educated, skilled workers in the manufacturing sector, and maintain economic competitiveness in the region, the Community College of Baltimore County (CCBC), in cooperation with partners representing industry, education and government, is planning for a Metropolitan Baltimore Center for Manufacturing Education. The Center has as its main thrusts reengineering the CCBC manufacturing programs; expansion of current cooperative arrangements among manufacturing stakeholders; adaptation, adoption or development of curriculum; increasing enrollment capacity; and increasing graduation and placement of technicians into skilled positions within regional manufacturing. To plan for a Metropolitan Baltimore Center for Manufacturing Education, the CCBC is bringing together all shareholders in manufacturing to develop a plan of action building on existing programs and industry need; establishing a management plan for the Center; enhancing collaboration among the partners; identifying deliverables; and developing a plan for evaluation.